Dissertation Research: An Experimental Study of the Effects of Resource Quality and Quantity on Zooplankton Community Dynamics

Extensive evidence suggests that resource quantity and quality can have an important influence on zooplankton community structure. Hypotheses developed in this research describe how the resource base of the zooplankton is expected to vary seasonally among systems with differing trophy and differing nitrogen and phosphorus supply ratios. Predictions are made regarding the response of the zooplankton community to these variations in resource base. The preliminary results of experiments conducted this past summer are discussed as they pertain to the proposed hypotheses. Further research is proposed that will allow evaluation virtually all of the components of the resource base and of the zooplankton community to enrichment at high and low TN:TP ratios.